Picosecond Optical Signal Sampling Device

This proposal is for a continuation of work to develop optical wave guidelines for high rate optical signal processing. The previous work led to the development of a nonlinear optical interferometer capable of performing logical functions at, potentially, extremely high rates. The proposed project seeks to use this interferometer (or a suitably modified version of it) to perform fundamental quantum measurements, in particular, to provide for lossless taps on light propagation in an adjacent fiber guide. Although it is hard to say how wide spread the application of the proposed research will be, it is certain that the outcome of this research will broaden the understanding of how to make measurements on quantum systems without substantially altering the features one is trying to observe. The PI is considered to be extremely well qualified to carry out the proposed research and I recommend funding of this project for three years in accordance with the budget submitted with the proposal.